Technician Support: EPS-ICPMS Facility at Harvard

9711008 Rudnick This award provides partial funding for the support of a technician who will take charge of the operation and maintenance of the inductively coupled plasma-mass spectrometer (ICP-MS) laboratory in the Department of Earth and Planetary Sciences at Harvard University. The ICP-MS laboratory at Harvard is a research laboratory providing multi-element analysis capabilities for a variety of research groups in geochemistry, atmospheric chemistry, and archeology. ***